Experimental and Theoretical Constraints on Mantle Melting Beneath Ridges: Extentions to the Spinel to Garnet Transition and Beyond

Kinzler 9314626 Motivated by the concern how melting near sp/gt lherzolite transition and magma extraction processes will control major and trace elements in magmas, the PIs propose a 4-step approach in this project to study magma generation processes at mid-oceanic ridges. The PIs will perform simple phase equilibrium experiments at 17-40 kbar, parameterize the results, use simple 2-D and 3-D transport models to examine how trace element abundances in magmas will be affected, and, finally, work out the mass and energy conservation of the models.